Mathematical Sciences: Vicosity Solutions of Fully NonlinearEquations

This project involves the study of viscosity solutions to fully nonlinear partial differential equations. Earlier work in this area set the stage for the complete development now available for first order equations in finite dimensions, and subsequent developments in the theory of viscosity solutions of first and second-order fully nonlinear equations yielded strongly developing theories of Hamilton-Jacobi equations in infinite dimensions and fully nonlinear second order equations in finite and infinite dimensions. The present work is concerned with viscosity solutions of Hamilton-Jacobi equations in infinite dimensions, second order equations in both finite and infinite dimensions, and second order equations in the space of integrable functions. In recent years there has been a remarkable development of the theory of fully nonlinear partial differential equations of first and second order; this development followed the successful introduction of the notion of "viscosity solutions" of these equations which allows one to admit nowhere differentiable functions as solutions. Equations of this sort arise in many areas of mathematics and its applications, including control theory, the theory of differential games, problems of a geometrical nature, asymptotic problems, etc., etc. The pace of this development is currently at its peak, and fundamental work remains to be done to render the theory more accessible, more general, and more complete. The proposed work lies in these directions and chiefly concerns the using of the new methods to complete several aspects, including "infinite dimensional" versions partially motivated by the theories of control and differential games involving systems whose state lies in infinite dimensional spaces and more penetrating studies of the finer structure of viscosity solutions in both infinite and finite dimensional settings.